Nonlinear Problems of Solid Mechanics

S. S. Antman will treat a variety of dynamical and steady-state
nonlinear problems for rods, shells, and three-dimensional solid bodies.
The bodies are composed of nonlinearly elastic, viscoelastic, plastic,
viscoplastic, or magnetoelastic materials. In each case, properly invariant,
geometrically exact theories encompassing general nonlinear constititutive
equations are to be used. The goals of these studies are to discover new
nonlinear effects, determine thresholds in constititutive equations separating
qualitatively different responses, determine general classes of constitutive
equations that are both physically and mathematically natural, examine
important kinds of instabilities, contribute to the theory of shocks and dissipative
mechanisms in solids, and develop new methods of nonlinear analysis and of
effective computationfor problems of solid mechanics.

The award will support mathematical research on the mechanics of solids,
such as metals, plastics, etc. Qualitative phenomena such as the buckling
of columns and shells, the propagation of waves in rods, and the formation of
shocks that could lead to fracture will be studied for wide classes of mathematical
models. This work is interdisciplinary, combining modern techniques
from engineering mechanics, physics, and mathematics. One important feature
of the modern mathematical techniques employed, which is not widely known
outside of mathematical circles, is that the analytical methods used can handle whole
classes of physical problems for different kinds of materials in different kinds of
shapes subject subject to different kinds of loadings, all at the same time.
In this sense, the approach is the antithesis of computational methods,
which can handle only one specific problem at a time. Part of the outcome of this
work will be the development of effective numerical methods for this rich class
of problems, and some of the results will be illustrated numerically.